Matrix and Gas Phase Reactions of XNO (where X = F, Cl or Br)

The principal investigator proposes to initiate a research project with the following goals: a) to identify the final products of the reactions between ClNO (XNO) and other atmospheric species, in particular ozone, water, sulfur oxides and simple alkenes, and their relevance to atmospheric chemistry b) to obtain information on the time scales in which these reactions occur. c) to provide some insight into the reaction mechanisms by use of matrix isolation techniques. d) to determine whether vibrationally induced chemistry is observed in XNO reactions and investigate the mechanisms by which these infrared induced reactions occur. Preliminary activities to be done during the planning period include the following: 1) Synthesis of the nitrosyl halides and ozone. 2) Design and construction of a vacuum system that will allow the preparation of the reactants 3) Modify the designs of a cryostat to prepare clean matrices and to allow the transportation of samples from the FT-IR to the UV-Vis spectrometer. 4) Adaptation of the departmental FT-IR to fit the cryostat 5) Modification of laboratory space so as to provide adequate electrical requirements, water requirements, and ventilation for the vacuum equipment.